Mathematical Sciences: Metrics on Groups

9401302 Plaut The research entails the study of groups which can be isometry groups of Riemannian manifolds and metrics on infinite dimensional groups. As a test case, groups actions on infinite dimensional spheres can be studied. The research has group- theoretic ramifications and thus may be potentially applicable to algebra and other areas of mathematics. ***